NYI: Object-Oriented Database Tools for Supporting Complex Evolutionary Software Systems

The objective of the this project will be to conduct research in the development of database technology and to meet the challenging requirements of engineering and scientific applications, such as design automation and the Human Genome project. This will aslo involve graduate students in research projects aimed at developing object-oriented database technology that supports 1) the integration of complex data types, 2) the maintenance of customized database interfaces for individual tools, and 3) the entensibility of the system without discrupting existing database uers and tools.